Acquisition of a 400 MHz NMR Spectrometer for Research and Education in Chemistry

This award from the Chemistry Research Instrumentation and Facilities Program and the Major Research Instrumentation Program will enable the faculty in the Department of Chemistry at The University of North Dakota to acquire a 400 MHz NMR Spectrometer. This equipment will enhance research in a variety of different areas of chemistry, including organic, bioorganic, synthetic carbohydrate, inorganic, and analytical chemistry. The instrumentation will be used in several research projects, such as, studies of carcinogen-DNA interactions, stereoselective synthesis of disaccharides and related compounds, reactions of early/late transition metal dimers with organosulfur compounds, electron transfer reactions, and others. The NMR spectrometer will also be available for teaching graduate and undergraduate students to obtain and interpret the kinds of spectra (2D) that are unavailable with the current instrumentation. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as synthetic chemistry, catalysis, and in biology.